Challenges in Pattern Recognition

0223741
Alfred O Hero
University of Michigan

The goals of this workshop are broad: to bring together a multi-disciplinary group of researchers to shed light on the important challenges, the open problems, the promising approaches, and to get a general picture of the state of the art in areas related to pattern recognition. Each of the eminent researchers listed below
will present a 20 minute talk. They come from diverse communities including: computer science, applied math, information theory, signal processing, and statistics. There will also be representatives from NSF-CISE, NSF-DMS, NSF-BioMed, and possibly other federal agencies (CIA, NSA, DoD), who will be attending.